Electro - and Photofacilitated Transport of Molecules through Liquid Membranes

One of the most promising fields within separations technology involves permeation through membranes. A particularly effective subcategory within this field uses liquid membranes on a suitable support. The separation is achieved by a chemical carrier within the liquid that combines with the desired component on one side of the membrane, by a process called complexation, and is then released on the other side by a reversal of the process. This method is capable of high transfer rates and effects the separation of desired species from mixtures without high energy requirements for phase change or pressure drop. A three-person research team has been studying this separation phenomenon with each specializing in an important aspect of the process. Preliminary results have been encouraging from the multi-faceted challenges encountered in such a system. What has been impressive thus far is the success that has resulted from using mathematical modeling to identify and resolve experimental differences from theoretical expectations. Certain of the models have served to guide the course of the research plan and yield improved systems.